ITR: The Bio-Networking Architecture: A Biologically Inspired Approach to the Design of Scalable, Adaptive, and Survivable/Available Network Applications

The researchers envision a future where a universal network connects every human being and most human-made electronic devices. The universal network spans locations engaged in every human endeavor, including the home, workplace, transportation vehicles, public facilities, and space facilities. The wide availability of open computing power, bandwidth, and natural interfaces such as speech recognition and brain-computer interfaces will allow the user or organization to merge with the network into a unified, ubiquitous entity.
To realize this vision, the researchers believe a radical shift in network design paradigms is necessary. The PI proposes a new network architecture called the Bio-Networking Architecture. The Bio-Networking
Architecture is inspired by the observation that the biological world has already developed the mechanisms
necessary to achieve such key requirements as self-organization, scalability, adaptation and evolution,
security, and survivability necessary for our envisioned universal network. In the biological world, each
individual entity (e.g., a bee in a bee colony) follows a simple set of behavior rules (e.g., migration,
replication, reproduction, pheromone emission, energy exchange, mutation, death), yet a group of entities
(e.g., a bee colony) exhibits complex, emergent behavior and characteristics (e.g., self-organization,
scalability, adaptation and evolution, security and survivability). The researchers believe if a network is modeled after biological concepts and mechanisms, it may be able to achieve the desirable properties of self-organization, scalability, adaptation and evolution, security, and survivability.
In the Bio-Networking Architecture, network services and applications are implemented by a
distributed, adaptive, and self-organizing collective entity called the super-entity, which consists of a large
number of autonomous entities called cyber-entities (analogous to a bee colony consisting of multiple
bees). Each cyber-entity implements a functional component related to the overall service or application
and follows simple behavior rules (e.g., migration, replication, reproduction, pheromone emission, energy
exchange, mutation, death) similar to biological entities. Useful behaviors and characteristics arise from
the behavior and interaction of individual cyber-entities. The innovative features of the Bio-Networking
Architecture include:
1)Application of Biological Concepts. The proposed Bio-Networking Architecture is the first attempt to
apply the biological concepts of emergent behavior, adaptation, evolution, diversity, social networking,
and food (energy) to the design of a network architecture.
2)User-Network Unification. The Bio-Networking Architecture represents a paradigm shift in the
relationship between a user or an organization and the network. It merges the network and the user or
organization into a unified entity, giving the user or organization a ubiquitous presence.
3)Emergent Behavior and Evolution. The Bio-Networking Architecture enables the construction of
complex services and applications with the inherent properties of self-organization, scalability,
adaptation, evolution, security, and survivability. Because the Bio-Networking Architecture adapts and
evolves to accommodate short and long term changes in network conditions, system designers,
administrators, and users are free from managing and tuning network applications.
4)Self-Organization. The proposed Bio-Networking Architecture is a self-organizing, administration-free,
and scalable networking architecture which vertically integrates the protocol stack from the
network layer upward, eliminating duplication of functionality among protocol layers.